Postdoctoral Research Fellowships in Chemistry

Dr. Michael M. Haley has been awarded a Postdoctoral Research Fellowship in Chemistry. Dr. Haley's doctoral degree was from Rice University under the supervision of Professor W.E. Billups. Dr. Haley intends to continue research at the University of California at Berkeley under the sponsorship of Professor K.P.C. Vollhardt. Dr. Haley's area of postdoctoral research and training will be total synthesis and organometallic catalysis. Longer term, he plans to apply his synthetic skills to the generation of new forms of carbon. %%% The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D.s and attract them into meaningful careers in contemporary chemical research and teaching.